Renovation of Environmental Engineering and Science Laboratory

This project involves the renovation and modernization of the interdisciplinary environmental engineering and science laboratory at Manhattan College. The successful completion of this project will result in a comprehensive and unified environmental laboratory complex. Individual research and research training areas will include: unit operations/advanced water and water waste treatment; instructional/research training; aquatic and sediment chemistry research; microbiology; instrumentation; toxicology; radiological microcomputer; storage; equipment calibration/repair; glassware storage/washing. Some of the research to be supported by the renovated facility includes: risk assessment research - in a modern dedicated toxicology lab overseen by a new faculty member; the continuation and expansion of breakthrough research to determine toxic effects based upon acid volatile sulfide contents of sediments - in a dedicated acquatic and sediment chemistry lab; investigation of new techniques for advanced treatment of water and wastes such as biological fluidized beds and odor control - in a renovated unit operations lab; and enhancement of research characterizing risk to the ecosystem and human health of genetically engineered microorganisms - in a dedicated microbiology lab. Additionally, hundreds of thousands of dollars of research instrumentation acquired under various sponsored projects will be housed in a climate controlled instrumentation lab.